Designing a Pre-Technology Program Using an Interdisciplinary Approach and Work Keys Assessment

This is a three-year project to design and develop a Pre-Technology program using an interdisciplinary approach; using real-life illustrations from industry and appropriate technology; forming learning communities that emphasize collaborative learning; assessing students' learning using work keys criteria; and recruiting underrepresented high school students into ATE programs. The project brings together Onondaga Community College, three area high schools, two additional New York community colleges, and local industries led by United Radio. The key component is a 1-semester integrated program. Its focus is a cluster of interdisciplinary, modular courses that include electronic skills, mathematical skills, composition skills and computing skills. Other components are Industry Internships, Teacher Training, and Career Awareness sessions. Internships will be the summer following completion of the program.